Condensation Dynamics

Condensation phenomena have long been recognized as having a major impact on the design and operation of steam turbines. Early literature on this subject and many studies over five or six decades have focused on the homogeneous condensation as a mechanism for the initiation of nucleation and condensation in the wet stages of steam turbines. A series of studies conducted in operating turbines first suggested in 1978 the possibility that turbine condensation was not originated by homogeneous condensation because wet steam was found to be present at the point in the turbine where the saturation ratio is equal to or somewhat less than unity. This discovery, which was made by surveys ofoperating turbines with specially designed optical probes, has prompted the focus of attention on other mechanisms of nucleation and, in particular, on the role of heterogeneous nucleation as caused by low levels of impurities present in the working fluid. This research effort will focus on these processes and will explore a new range of potentially pertinent physical effects.